Studies of Chemical Rate Processes by Means of Electrophoretic NMR and Laser Light Scattering

The Experimental Physical Chemistry Program has made a grant to Professor Charles Johnson. His research work on chemical rates involves the use of strong electric, magnetic and laser light fields to better understand how molecules move in solution and at what velocities. The high resolution electrophoretic nuclear magnetic resonance (ENMR) experiments have been carried out in free solution on samples with low ionic strengths. The experimental conditions (and problems) encountered here are similar to those found in electrophoretic light scattering. The preliminary work indicates a host of intriguing applications to be explored. It will become a major branch of NMR for the study of aqueous solutions and suspensions. This study outlines some initial applications of ENMR. In addition to the ENMR work, Professor Johnson will continue his studies in holographic Rayliegh scattering (HRS). The HRS spectrometer with high frequency phase modulation represents a major advance in instrumentation for transient grating spectroscopy. In particular, they will explore the Soret effect for macromolecules in laser induced temperature patterns.